Elementary Particle Theory

Research in theoretical elementary particle physics will include work on
relating theoretical predictions to new experiments that will be performed
in the near future, and to the development of ideas involving superstring
theory, a theory of all fundamental interactions. The detection of dark
matter, the mysterious non luminous material that appears to make up about
90 % of our Milky Way galaxy, and the the recent exciting Brookhaven
National Laboratory measurements that appear to indicate the existance of
new physical phenomena will be analyzed, and a study will be made of how
superstring models can account for the masses of elementary particles.
The analyses of experimental predictions are of importance as a whole
array of new experiments that will be able to discover the existence of
new laws of physics in the high energy domain have now started or will
start in the near future, and these experiments can be used to test new
theories of nature and determine what these new laws are. The theoretical
work on superstring theory is of importance as this theory is one of the
main candidates for a new theory of all interactions including gravity, as
well as representing a possible fundamental framework for cosmology.